US GLOBEC: Long-Term ADCP, Moored and Lagrangian Measurements and Analysis as Part of a Georges Bank Study

9806445
Brink

The GLOBEC Georges Bank field study concludes in late 1999. As part of this effort, Dr. Brink and collaborators will have collected five years worth of physical measurements involving moored observations, drifters and shipboard ADCPs (Acoustic Doppler Current Profilers). This project will include telemetry of optical data from an existing mooring. The main part of this study is to cover analysis of this large data set. They will use moored measurements to characterize the water properties (flow, hydrographic and biological) and important driving agents, and they will use drifters to understand dispersion, residence times and frontal processes. Historical hydrographic data will allow them to understand the historical representativeness of the GBS field period. ADCP data will allow the characterization of Bank-wide flow patterns and their seasonal evolution. Finally, the physical knowledge base will help to answer interdisciplinary questions about how physical processes (which might be somewhat predictable through climate models) influence variations in biological recruitment.